Preservation of Seismic Reflection Data from the University of Wyoming

0214397
Morozova

This grant provides support to University of Wyoming seismologists to reformat, place on modern media and make accessible via the internet, common depth point (CDP) and vertical seismic profiles (VSP) collected within the Kola borehole drilled in Russia (the deepest borehole in the world). All of this data will be made freely available to the broader scientific community through the IRIS Data Management System (DMS).
***